System for Infinite Series

9360267 Gosper This project is to develop a prototype software system for computing definite summations. Some of the methods developed, whether or not they succeed in finding a closed form result, will offer an alternative expression, mathematically equivalent to the sum but more rapidly convergent. A secondary goal is to develop in parallel, the complementary process of expanding expressions into infinite series. The resulting product will be embedded in Macsyma, an established symbolic-numerical mathematics software system with many users who will benefit from better technology for computing with summations and series. ***